TMCC Science Enhancement

This project has four key focus areas which are designed to
provide opportunities for student learning, retention and success. The Outreach component
targets the K-12 system to foster science exploration and success with the ultimate goal of
increasing the number of students choosing STEM science careers. At the college level, the
project will increase enrollment of STEM science majors through the development of new
courses and programs. For retention of STEM students, the project will foster increased
opportunities for student success. To increase completion/transfer/four year graduation
rates, TMCC will initiate partnerships with four year schools to upgrade its curricula, initiate joint
research and aid students in developing familiarity with four year schools.

The project will conduct an in-depth review and revision of the existing
TMCC science courses. This effort meets two critical needs: enhancing student learning by
providing more hands-on activities and ensuring the curricula is consistent with the standards at
four year schools. In the latter area, the project will foster partnerships between the college and
four year colleges. These partnerships are expected to bridge the rural isolation experienced by
the TMCC faculty and provide four year school familiarity to students prior to transfer.
As this project is the demonstration of how involvement in learning impacts student
achievement and career choices, it is applicable not only in STEM subjects but across the
curriculum. The current literature suggests student learning is heavily impacted by how
engaged the student is in the learning process. Using a results driven approach, the project will
identify what enhancements positively impact student learning not only at the college level, but
across the continuum of education. The results of this project can be replicated not only at the
college level but in K-12 Native American programs.